NEDG: Efficient Design and Control of Heterogeneous Mobile Networks: Beyond Poisson Regime

Mobility is central to various applications, from the classical
problems of searching for a moving target and rescue mission in
military and disaster settings, to deploying mobile ad-hoc/sensor
networks for surveillance and data communication over hostile
terrain and underwater. While the random mobility pattern of nodes in
these networks has been considered as the main source of uncertainty and
disruption of communication links, it can also facilitate reliable and
predictable performance, if properly controlled and actively exploited.
Most existing approaches have taken advantage of nodes' mobility only as
passive vehicles for data forwarding upon contact by chance, with an
over-simplifying assumption that every pair of nodes is making contacts
with each other according to a Poisson process, which is recently
contradicted by empirically observed non-Poisson nature with high degree
of heterogeneity in various mobile networks.

The long-term goal of this research is to develop a unified methodology
for efficient protocol design and control of nodes in heterogeneous
mobile ad-hoc networks and delay/disruption-tolerant networks under
non-Poisson contacts. The goal further extends to the use of mobile
nodes with controllable mobility that can autonomously exploit the
changing diversity. The broader impact of this research lies in its
interdisciplinary nature in addressing the analysis and design of
algorithms running on mobility with heterogeneous non-Poisson contacts,
which is also central to other scientific areas such as epidemiology,
foraging ecology and biology, all driven by contacts among living
organisms. This tight relationship between mobile ad-hoc networks
and various phenomena in nature will serve as a vivid example for
undergraduate students at a freshmen level or even to general public.